Dissertation Research: Evolutionary Dynamics: Resolution of Opposing Male Forces Within Intermale Competition

IBN- 9412118 Gilbert, Ryan and Deinert Abstract Darwin originally proposed two types of selection that could affect animals. Both are complicated phenomena that we continue to struggle to understand fully. In this doctoral dissertation research, Gilbert, Ryan and Deinert have identified a system in which the evolutionary dynamics of both types of selection can be studied in detail. A series of experiments on competition between males and on mate choice by males will further our knowledge of how different types of selection interact in the evolutionary process.